POWRE: Phylogeny and Subfamily Position of the Vernonieae (Cichorioideae, Asteraceae)

PI:Keeley, Sterling

INSTITUTION: Univ of Hawaii Manoa

PROPOSAL: DEB 0075095

The P.I. proposes a project to establish a phylogeny for Vernonieae, develop new collaborations with researchers working on the subfamily Cichorioideae and evolution within the Asteraceae (Smithsonian's Laboratory of Molecular Systematics). She will acquire sequencing expertise for chloroplast and nuclear genomes. There are four main objectives of this work: 1) obtain training in techniques and approaches for sequencing genes and gene regions in the chloroplast and nucleus that lead to phylogenetically informative data; 2) construct the first subtribal phylogeny for the Vernonieae with representative from all known geographical areas and from all known lineages; 3) participate in ongoing studies of the Cichorioideae; and 4) identify specific clades within the Vernonieae for future study. This POWRE award will provide the PI with a chance to reinvigorate her research program after having spent the last 6 years in adminstration.